Regional Network Provider for the NSFnet and NREN Program

9321039 Ricart This award assists the regional network, SURAnet, in obtaining connectivity to other regional networks in the United States and to the rest of the Internet. The award made under the guidelines published in the NSF Program Solicitation 93-52, partially funds two T-3 connections over an anticipated duration of 4 years.